Turkish Electronic Living Lexicon

TELL (Turkish Electronic Living Lexicon) is a searchable online electronic
database containing a list, derived primarily from dictionaries and
atlases, of those Turkish words known to a one native speaker of Standard
Istanbul Turkish. Words are entered both in orthography and in standard
phonemic transcription, as elicited from the speaker. Each lexeme was
elicited in several morphological contexts; these are all included in TELL.
Etymological information and roots of complex words are provided for just
over half of the items. The preceding was accomplished during the first
phase of TELL, funded by NSF. The second phase will add significant
dimensions to the database. Two additional speakers will be added;
etymological sourcing and morphological parsing will be completed. TELL
will be linked to a sizable text corpus so that text frequency and
concordance information can be provided for each lexeme. For two of the
speakers, high-quality audio files will be made available for each word,
downloadable over the internet. TELL will thus be a tool for phonologists
and phoneticians alike, and will also serve teachers and students of
Turkish. The URL for TELL is
http://socrates.berkeley.edu:7037/TELLhome.html.